Broadening Geosciences Disciplines at the National Association of Black Geoscientists Annual Technical Conference: Houston, TX, September 5-8, 2018

This project provides partial support for about 10 faculty from historically black colleges and universities (HBCUs) and for about 50 students-of-color from across the nation to participate in the Annual Technical Conference of the National Association of Black Geoscientists (NABG), 5-8 September 2018 in Houston, TX. Engaging HBCU faculty in professional development opportunities such the NABG will help maintaining their scholarship and social capital among prospective employers of their graduates. Furthermore, most HBCU degree programs of relevance to the geosciences are environmental and atmospheric sciences programs. Students in these programs are historically under-represented at the NABG annual conference. The objective is to expand the disciplinary representation of NABG to include more people-of-color interested in broader disciplines of Geosciences. A primary aim of this project is to engage faculty and students in HBCU environmental sciences programs and aid their participation in a national conference of importance to placing them in the 21st Century geosciences workforce.

Despite the efforts of professional organizations like NABG, underrepresentation of African Americans in geosciences remains low. Recent assessments found that degree awards in geosciences to persons from underrepresented groups remain very low; <10% of geoscience degrees at every academic level are awarded to those with minority status, and African Americans earn fewer than 3% of geoscience baccalaureate degrees. Earlier participants in NABG meetings have continued in their academic preparation in geosciences or entered the national geosciences workforce; including 100% career advancement for students who attended at least four NABG conferences. Thus, participation of students-of-color in NABG appears to be strongly correlated with career success.